Track 2 GK-12: Sensors!

This proposal describes a Track 2 project developed by the University of Maine in collaboration with several Maine public school systems in urban, suburban, and rural communities to capitalize upon UMaine's interdisciplinary, state-of-the-art sensor science and engineering resources to establish strong partnerships with middle and high schools, benefiting GK-12 fellows, teachers, middle and high school students, senior personnel, and business and community stakeholders. Focusing on sensor science and engineering, the PI, Dr. Vetelino is carefully integrating NSF RET, GK-12, REU, and IGERT programs, reaching students from middle school through the Ph.D. The synergy among the PI's education and research programs provides a national model on how to effectively integrate an emerging interdisciplinary research area such as sensors with education, particularly within a rural and economically depressed region.